Computer Aided Mapping

This project permits surveying engineering students to have a labortory experience of applying photogrammetric methods to computer aided mapping and geographic information systems. The project lab includes a fast, versatile computer aided analytical stereoplotter. With this equipment, students experiment with stereo models and with generating and manipulating digital terrain data bases. In combination with other existing equipment, advanced students monitor structural deformations, measure underwater structures and analyze human body and joint movements for bioengineering studies. This award is being matched by an equal sum from the grantee.